Endocrinology of a Viviparous Amphibian

The ability to give birth to live young occurs in all classes of
vertebrates except cyclostomes and birds. In a unique order of tropical
amphibians, the caecilian amphibians, the majority of species give birth to
live young but the physiological mechanisms which control this process are
unknown. It is proposed that fetal caecilian gills function as endocrine
organs and produce hormones similar to those produced by mammalian
placentas. Such structures have not been described in non-mammals. The
goal of this project is to determine whether fetal caecilian tissues
produce steroid hormones. The methods to be used include identification of
steroid metabolites produced by tissues in vitro and localization of
enzymes known to function in steroid synthesis. Maternal steroid hormone
levels will be determined.

These studies will provide the first information on steroid endocrinology
and the control of live- bearing for this order of amphibians. They will
thus contribute substantially to understanding of reproductive biology and
conservation of these unique animals and also to hormonal control of
pregnancy in other vertebrates.